Minority Institutions Infrastructure: Dynamic and Irregular Parallelism: Its Management in Symbolic and Scientific Computing

9810732
Karshmer, Arthur I.
Aluru, Srinivas
New Mexico State University

Minority Institutions Infrastructure: Dynamic and Irregular Parallelism: Its Management in Symbolic and Scientific Computing

Through management of dynamic and irregular parallelism in symbolic and scientific computing, NMSU is establishing an infrastructure to support the development of a competitive integrated research and student training program in computer science that will service its large under-represented student population. The equipment represents the fundamental backbone for the progress of projects which rely heavily on the availability of both a large shared memory architecture as well as a fast distributed system. For a long-term impact, the research activities are being organized under thrusts involving automated debugging tools, natural language processing, symbolic computing projects, and parallel algorithms and applications. The related synergistic research is being conducted via eleven projects encompassing those topics. The plan includes direct cooperation with institutions in New Mexico serving a large Native American population as well as cooperation from the American Indian Program (AIP) and the Alliance for Minority Participation (AMP). Through this effort, New Mexico State University is expected to develop further its computing science research capabilities involving minority students in greater numbers, paving the way for eventual conferring of doctoral degrees, not only to Hispanic students, but also to Native American students. It is hoped that through these efforts, the nation might find a successful model that will help in building a better racially and ethnically balanced technological enterprise for the benefit of its present and future generations.